CAREER: Expanding Earth System Modeling Through Research and Education: An Integrated Assessment of Interactions between the Ocean, Atmosphere, Carbon Cycle and Climate Change

This project addresses some broad issues in climate change uncertainties using a 2D Integrated Science Assessment Model (ISAM). In particular, the main objectives are to (1) strengthen parametric representation in the current ISAM framework, and (2) use the strengthened ISAM framework to evaluate the impact of key feedback processes within the climate system involving atmospheric CO2, global warming, the hydrological cycle, ocean circulation, the marine carbon cycle, and their contribution to spatial and temporal changes in ocean carbon uptake. A focus will be on the investigation of possible changes in the Thermohaline Circulation (THC) and its impact on ocean biology, on the distribution of temperature and tracers in the ocean, the evolution of the atmospheric CO2 concentration, and atmospheric temperature change.

ISAM results will be compared with other 2-D and 3-D atmosphere-ocean general circulation models

This research has the potential to increase knowledge and understanding of physical processes that influence the concentration levels of carbon dioxide in the atmosphere. This is turn is important for assessing the role of human-induced forcing on climate change, an important societal issue.